PostDoctoral Research Fellowship

This award is made as part of the FY 2018 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Chris Gerig is " Embedded Contact Homology, Near-Symplectic Geometry, and 4-Manifold invariants" The host institution for the fellowship is Harvard University, and the sponsoring scientist is Peter Kronheimer.